Development of Biotechnology in the Core Curriculum as an Adjunct to Undergraduate Research

9452591 Swope An upper division biotechnology course provides an extensive laboratory experience, enabling interested students to plan and execute an undergraduate research project in this area. The principle investigators, a biologist and a chemist, are the core of a multidisciplinary research team designed to promote participation of majors in undergraduate research projects in the emerging field of biotechnology.